Cyber-Infrastructure for Materials Science Workshop, Arlington, VA, May 23-25, 2006

The combination of high-performance computing, networked access to
instruments and national facilities, rapid access to databases, grid computing
and other technologies are collectively becoming known as Cyberinfrastructure.
This is an area of very intense interest throughout the scientific community,
and specifically for the research communities supported by the Division of Materials
Research.
Exactly how the promise of Cyberinfrastructure will be utilized in different areas
of science varies with the needs of different communities. The purpose of this
workshop is to identify how Cyberinfrastructure will be best utilized
by the researchers and communities supported by DMR, and to suggest
strategies for integrating Cyberinfrastructure into DMR research proposals, and into
the comprehensive Cyberinfrastructure plan being developed by NSF.